Electric Power System Infrastructure

This project is investigating possible structures for a National Power Systems Research Institute that will involve universities in the problems of power system infrastructure, especially manpower. The goal of the project is to develop a structure that will allow the institute to have a key leadership role in addressing some of the institutional and technological problems associated with power system infrastructure in the US. It is investigating a research focus, an educational focus, and administrative makeup, criteria for determining its location, and criteria for outreach to other universities and other segments of the industry.